Dissertation Research: Land-Use in Highland Bolivia: Farm Household Choices and Communal Land Management

This project supports the dissertation research of a cultural anthropologist in highland Bolivia. The research will examine Andean land-use focusing on the field fallowing choices of households and local resource management institutions. The study examines sectoral fallowing systems, which balance community control over agricultural decisions with individual farmer's decisions. The project will examine the soil on a sample of farms to relate decisions about fallow strategies to soil quality. Methods include participant observation, a sample survey of 130 farm families, and soil samples and analysis from the interviewed farms and a sample of 30 fields in different agro-ecological zones. This research is important because this area of the world has well-defined traditional community resource management institutions. Understanding how specific institutions succeed or fail in managing fundamental resources like soil is important to help design conservation policies for other areas.